FASEB Conference: Transcription Initiation in Prokaryotes to held July 3-8, 1999, at the Vermont Academy in Saxton's River, Vermont.

9900515
ABSTRACT

The 1999 FASEB Summer Conference on "Transcription Initiation in Prokaryotes" is to be held July 3-8, 1999, at the Vermont Academy in Saxton's River, Vermont. The conference is held under the auspices of the Federation of American Societies for Experimental Biology (FASEB). There will be 10 major oral sessions, each including, on average, three 30-minute talks and two 15-minute talks. There will be two poster sessions, each lasting two days.

The topics to be discussed include the structure of DNA-dependent RNA polymerases; physical and chemical approaches to studying protein-protein and protein-DNA interactions in transcription; subunit structure, function, and catalysis; sigma factors, antisigma factors, and core interactions; promoters (two sessions); repression and silencing; formation and stability of elongation complexes; complex regulatory systems; and signal transduction. The meeting focuses on eubacteria, but there will be consideration of both archaea and eukaryotes where comparison is interesting.

The purpose of the meeting is to bring together biochemists, biophysicists and geneticists to share information. The field is progressing rapidly and providing important new information on structure and mechanisms at the molecular level.

This award will provide financial assistance to graduate students and postdoctoral fellows attending the conference.